Mathematical Sciences: Constant Term Identities and Combinatorial Enumeration

This project is about constant term identities, combinatorial enumeration, and their interaction. Four areas of research will be pursued: constant term identities; multi-variate integrals and their q-analogs; enumeration of certain arrays of integers; and uses of constant term identities in proving the Mills-Robbins-Rumsey conjectures. This project involves the use of computers in attempts to resolve some of the problems. The problems are also of interest in several areas outside of combinatorics, such as hypergeometric series, Lie theory, and cyclic homology.